ITR/SI: Automatic Consistency Checking for IPSec/VPN Security Policy

Although various IPSec policy issues [2,3,4] have attracted a lot of attention, within the IETF IPSP (IP
Security Policy) working group, there is certain amount of confusion and concerns about the two
fundamental issues: 1) How to ensure the correctness of a set of distributed security policies? 2) How
to systematically determine the correct set of policies and securely distribute them across the
network?
Internet will be more and more dynamic in many aspects. With the capability of various wireless network
technologies, users and even sub-networks can be mobile. Mobility implies potential changes in the
policies or the inter-relations among distributed policies. Adaptive security is another cause of policy
changes. It will be uncommon in the near future that, in reacting to a newly detected intrusion, a security
management system might on-the-fly determine to strengthen the security level by modifying the IPSec
security policies. Therefore, it is critically important to have a safe and rigorous solution to handle the
above two issues.
Policy Specification Correctness
Currently, in the research community of IPSec/VPN policy, to our best knowledge, no rigorous definition
for IPSec/VPN policy correctness has been developed. Later in this proposal, we will give a formal and
reasonable definition for correctness such that we will have a basis for policy specification analysis. Such
correctness analysis must be automated such that the security configuration of a network system can be
adaptive to changes, faults/intrusions, and mobility. On the other hand, if there are inherent constraints
and conflicts among the existing security policies such that it is impossible to have a consistent policy set,
the policy analysis engine should also automatically determine the impossibility.
Inter-domain Secure Policy Distribution
The proposed work under the first issue assumes that we have a perfect and centralized collection of
information related to the policies and security requirements around the whole Internet. However, in reality,
this might not always be possible as Internet is owned and managed by different administrative domains,
while, for trust and privacy consideration, information regarding local policy and network topology might
not be sharable across domain boundaries.
The second objective of this proposed research is, under some inter-domain related constraints, to develop a
collaborative framework/architecture and a suite of distributed protocols such that we can still analyze the
correctness of a set of decentralized IPSec/VPN policies. We will study the issue of the minimum amount
of policy information needed for a particular policy domain to determine whether its local policies and
requirements will be consistent with other domains. Once the set of policies is decided, a policy distribution
mechanism is also needed.
Under this proposed research project, we will first focus on the theoretical aspect of policy and requirement
specifications and their analysis. We will develop algorithms and analytical results to fundamental enhance
our current technology in policy-driven networking systems such as IPSec/VPN. Second, we plan on
implementing a prototype to validate and evaluate our proposed approach on a realistic networking
environment. The first phase will be a small testbed to run the prototype software, which will be open
sourced and available to the community. Furthermore, we would like to collaborate with industry partners
such as equipment venders and ISPs to further evaluate and validate our approach against real-world
challenges. Furthermore, we will pay special attention to the application of our solutions in a mobile
network environment. In such environment, the capability of dynamically updating IPSec security policy is
extremely critical. To summarize, we will not only deliver academic publications about our proposed works
but also produce a prototype system and perform extensive experiments, including the real-world data set if
possible, to evaluate the performance and accuracy and to validate our theoretical model in handling
difficulty issues in Policy-driven networking systems.